Speaker/Attendee Support at the Entrepreneurship in Polymers and Technology Symposium, September 10-14, 2006, San Francisco, CA

SUMMARY. Funds are requested from the National Science Foundation (NSF) for
attendee / speaker support for the title symposium. The ACS Division of Polymer
Chemistry has established a unique and diverse team of organizers from industry,
academia, and government focused on the important topic of entrepreneurship in polymer
science and technology. Polymer science and technology is an important component of
materials research which overlaps with many current NSF initiatives. The global
competitive demands on polymer chemists today require that they be well trained in
science and that they behave more like entrepreneurs to feed an insatiable technologically
innovative economy. An entrepreneur transforms creative ideas into successes and many
of the entrepreneurial success are directly related to NSF programs. This symposium will
focus on breakthrough inventions enabled by experimentation on novel, emerging, and
pioneering technologies oriented toward materials research. Closer collaboration
between industry, academia and government should increase the number, speed and
impact of success stories and place prominent emphasis on the necessity of
entrepreneurship.
The symposium will cover basic research leading to new technology development and
commercialization. Entrepreneurial activities ranging from identifying a need, to basic
research, to developing novel and useful technology, to protecting the invention, to
obtaining funding, to becoming a self-sustaining business will be reviewed. Our objective
is to provide current, practical information that is based on scientific breakthroughs
leading to real world experiences. The symposium will begin with a tutorial on
entrepreneurship. Discussions will focus on fundamental polymer and related science,
challenges and opportunities for scientists and engineers in the market to facilitate an
understanding of entrepreneurship. Scientists, engineers and technologists interested in
the latest developments and advances in this diverse and growing area are invited to
contribute oral and poster presentations.